Simulator-Based Neuronal Database

This project involves the development of software to facilitate the understanding and use of brain model simulations. The project is based on the GENESIS neural simulation system developed over the last 12 years in the laboratory of the principal investigator. GENESIS is now used in many laboratories throughout the world as a tool to help construct and run brain models at many levels of brain organization from subcellular to whole networks and systems. This project will develop a modeler's workspace to help find, organize, and visualize the data on which these simulations are based. In addition this project provides support to link numerous other existing neuroscience databases to the workspace. Finally, the workspace will also provide a novel educational tool to allow students of neuroscience to understand both brain models and the areas of the brain they represent.